Doctoral Dissertation Research in Law and Social Science

The intersection of the legal system and the child welfare system is a ripe area for scientific inquiry. To date, however, studies of the juvenile court have largely focused on delinquency issues, and child welfare studies of substitute care (for abuse, neglect, or dependency) have primarily focused on the children and on the foster or primary families. Ms. Harnett, under the supervision of Dr. Schuerman, seeks to combine these two traditions in her doctoral dissertation research. Her study examines court delay by comparing the frequency of hearing continuances and the reasons underlying continuances in two juvenile courts, Cook County (Chicago) and St. Clair County (East St. Louis). Both of these courts review similar cases but have significantly different placement durations for children in substitute care. It is hypothesized that competing court policies and the broader use of discretion account for more continuances and greater delay. The use of three data sources enables rigorous analyses and complex controls: juvenile court case records, an independent data base on child and familial characteristics (of the same cases), and systematic observation of actual hearings. This research shows considerable promise of illuminating the interaction between legal processes and social service practices. Also, it should add to our knowledge of juvenile courts on issues other than delinquency that are important. Finally, it should contribute to our understanding of delay and the dynamics of court process in a context outside of the criminal courts.